Nitrogen Isotopic Studies of Metamorphic and Magmatic Fluid-Rock Interactions

The principal investigator will study nitrogen speciation and isotope distribution in terrestrial igneous and metamorphic fluids and rocks using experimental, applied, and theoretical techniques. He will attempt to characterize N-isotope signatures related to various magmatic, metamorphic, and meteoric sources, and to identify N-isotope fractionation mechanisms in mineral-fluid-melt systems.